ACCESS IV: 1997 Atmospheric Chemistry Colloquium for Emerging Senior Scientists; Boston, Massachusetts; June 12-14, 1997

9711266 Davidovits The Atmospheric Chemistry Colloquium for Emerging Senior Scientists (ACCESS) was established as an institution aimed at recent or expectant Ph.D. recipients on the threshold of independent research careers in atmospheric chemistry. This will be the fourth in a series of Colloquia designed to introduce these young scientists and their thesis and/or post doctoral research to one another and to representatives of the major funding agencies involved in atmospheric chemistry and closely related topics. ACCESS IV will be held at Boston College June 12-14, 1997, immediately prior to the 1997 Gordon Research Conference on Atmospheric Chemistry in Newport, RI. The colloquium attendants will participate in the Gordon conference.